SBIR Phase II: Passivation of III-V Devices

*** 94-22662 TriQuint Semiconductor, Inc. This Small Business Innovation Research (SBIR) Phase II project addresses a passivation coating for semiconductor laser diode optical facets. Phase I showed that 980-nanometer quantum well lasers operated at high power with extended lifetime capacity when its laser diode facets were treated for passivation by cubic-gallium sulfide. In Phase II laser facet temperatures will be monitored by Raman spectroscopy, and failure modes will be evaluated by chemical and structural analyses. Lasers to be used in Phase II will have a master oscillator power amplifier (MOPA) and unstable resonator 980-nanometer quantum well structures. This technology is expected to find application in optical amplifiers in optical communication networks and more generally in passivation of gallium arsenide minority based devices, such as heterojunction bipolar transistors (HBTs), light emitting diodes (LEDs), and solar cells. ***